Undergraduate Research in Molecular Biology at the University of NC at Chapel Hill

9322064 Fried This award provides support to continue a successful REU SITE for an additional three years. The Program in Molecular Biology and Biotechnology, an independent campus-wide unit, created to promote genetic engineering research and education at the University of North Carolina at Chapel Hill, will sponsor the program. Academically successful students and students from disadvantaged backgrounds who exhibit high scholastic promise and who would benefit from an independent study experience will be chosen from a national applicant pool to participate in research projects conducted by UNC faculty. A total of 10 students will be supported by the National Science Foundation REU program and five additional students are expected to be supported with University funds. Emphasis will be placed on recruiting students from schools with limited research opportunities and students historically underrepresented in the sciences. The primary focus of the training program will be encouraging pursuit of, and providing preparation for, advanced degrees in the biological sciences. To meet these goals students will (1) work for 10 weeks on faculty-developed laboratory research projects, (2) meet with preceptors for informal seminars about science and personal accounts of how and why faculty became research scientists, (3) attend field trips to major research pharmaceutical companies and the National Institutes of Environmental Health Sciences in Research Triangle Park, NC, and to coastal marine labs operated by UNC and Duke University, (4) attend a Graduate-Professional Student Roundtable to learn in detail about life in graduate school, and (5) present the results of their research in talks before the community. ***